Post-Earthquake Fire Risk: Methodology and Systems Aspects of Mitigation

Little research has been conducted on the potential impacts of fire following major earthquakes in the United States and on ways to mitigate such secondary impacts of earthquakes. This represents a serious gap in our mitigation and preparedness activities in the United States. In another investigation, the research team began developing a model on the technical aspects of post-earthquake fire initiation and spreading using San Francisco as a case area. This project will extend the research to other jurisdictions, focus on selected high risk categories such as high-rise buildings or hazardous industrial installations, consider system aspects of firefighting response, and expand and implement the model on fire initiation and spreading.